High Resolution LEED Studies of Metal and Diamond Surfaces

9631708 Conrad The goal of this research planning grant is to provide the investigator with knowledge of the operation of the High Resolution Low Energy Electron Diffraction (HRLEED) instrument and the analysis of the diffraction line shape to determine the long range order and defect morphology of both metal and insulating surfaces. Preliminary study of diamond and stepped tungsten surfaces will carried out. %%% The goal of this research planning grant is to provide the investigator with knowledge of the operation of the High Resolution Low Energy Electron Diffraction (HRLEED) instrument and the analysis of the diffraction line shape to determine the long range order and defect morphology of both metal and insulating surfaces. Preliminary study of diamond and stepped tungsten surfaces will carried out. These materials have potential for use in the electronics industry. ***